Game-Theoretic, Evolutionary, and Adaptive Approaches to Coordination

This project is directed at understanding how coordination problems are solved. It uses complementary game-theoretic, evolutionary, and adaptive techniques to study historical models of coordination. Most of the research is devoted to a detailed analysis of the dynamics of strategy choices in populations repeatedly playing coordination games and adjusting their strategies in response to their experience in plausible, but not necessarily rational ways. The project focuses on models with the structure of evolutionary games, and on specific, simple coordination games, chosen both for their economic interest and for the availability of experimental evidence. The evolutionary approach has important comparative advantages in studying coordination, and provides a good foundation for adaptive models. The ultimate goal of this research is to understand how group size, the sensitivity of players' payoffs to each other's decisions, and player's opportunities to communicate interact to determine how well they coordinate their decisions. Coordination problems lie at the heart of many important questions in economics. These include the design of optimal incentive schemes; the characterization of which outcomes can be supported by implicit contract in a long-term relationship; and the determination of whether, and how, bargainers share the surplus from making an agreement. The analytic tools and insights into coordination problems from this project make a valuable contribution to this area of research. The contribution consists of new theories that provide more convincing characterizations of behavior in coordination games than standard techniques. For example, coordination experiments show that there are behavioral regularities that can not be explained by orthodox game theory but can be explained by the type of models developed in this project.